Mathematical Sciences: Numerical Solution of Differential Equations in Mechanics

The investigators will develop and implement algorithms for the computer modelling of water waves, including the breaking of waves. The algorithms will be based on a boundary integral formulation together with a time-marching algorithm to advance the free boundary. A number of new numerical techniques, never before applied to water wave problems, will be used. In particular, a new fast multilevel technique will be applied to solve the integral equations, which is the dominant part of the solution process. The investigators will write a robust and efficient computer program, which will be documented and placed in the public domain for unrestricted use, e.g., by oceanographers, engineers, fluid dynamicists, and numerical analysts. The investigators will validate the code thoroughly both through numerical testing and numerical analysis, and will compare its results with laboratory experiments. This work will improve the reliability and efficiency of computer simulations in hydrodynamics, such as arise in the modelling of off-shore structures, movement of boats through water, and tidal energy generation. Recent advances in computer algorithms will be adapted and applied for the first time in these areas, enabling the investigators to exploit very fast computer hardware. Through the development of a publicly available computer code this work will contribute to the transfer of ideas from theoretical mathematical research to technological applications.